Acquisition of an Autoanalyzer for Environmental Research

Brevard Teaching and Research Laboratories is seeking assistance in the acquisition of a Perstorp Flow Solution III dual channel autoanalyzer to perform automated nutrient analyses. There are currently several research projects underway which would be greatly enhanced by the acquisition of this instrument. These projects focus upon the evaluation of water quality conditions within the Indian River Lagoon ecosystem, an estuary located on the east coast of Florida. At present, Brevard Labs must rely upon tedious, obsolete, manual techniques to perform nutrient analyses, greatly limiting the scope and success of these research activities. Brevard Labs operates as a joint-use facility, and all instrumentation is available to the entire regional research community through an open-door policy. As a direct support organization of Brevard Community College, research training of graduate and undergraduate students, as well as visiting scientists, is one of the principal missions of Brevard Labs. As autoanalyers such as that proposed herein are considered standard to performing many research activities, the training made possible with this instrument acquisition will have wide-spread applicability.